A Study of Instructional Materials Innovation and Change

9814042
SCHMIDT

This project will extend what is known about curriculum and instruction in the US and link that knowledge to test results of TIMSS-R which will be administered to 7th and 8th grade students in the year 2000. Three lines of study are proposed: 1) examine selected NSF-funded curricula using the curriculum analysis method developed for the TIMSS study; 2) identify what curricula are in place in TIMMS-R sites; and 3) study a selected number of NSF-funded systemic reform sites to analyze the link between the systemic features of these jurisdictions teacher practices and student achievement.